ITR: Intelligent Networks for Resilient Web Services

Distributed applications comprising components from multiple
administrative domains, pose scalability and availability challenges
because of the lack of a central administrative authority. This
project investigates, in the context of the Web Services architecture,
whether application-level intelligence on the network path between
clients and services can help address these challenges. The
intelligence is embodied in modules for inspecting client traffic,
making decisions about service actions such as replication, request
redirection, or admission control, and finally realizing these
actions. The project combines a system architecture for executing
service-specific actions at intermediate routing nodes with
application-neutral algorithms for servicing client requests closer to
the network edge. Both the architecture and the algorithms work with
a semantic framework, which treats service requests as structured
accesses against a (physical or virtual) database.

The intellectual merits of the activity include (1) development of
novel techniques and algorithms for automatically scaling
component-based services in response to adverse client and network
load conditions; and (2) investigation of architectures for securely
and efficiently realizing service-specific actions on client requests
closer to the network edge.

Broader impacts of the activity include (1) techniques for improving
the resilience of the nation's cyber-infrastructure against malicious
attacks; and (2) integration of the research results into an
undergraduate-level course that will train students to build
component-based distributed systems.